The Keck Geology Consortium--Providing Collaborative and Yearlong Research Experiences for Undergraduates

The Keck Geology Consortium will offer summer research experiences for 51 undergraduates, building on 23 years of successful programming. Students will be recruited from the 18 consortium schools, and 30% of participants will be from non-Consortium institutions. Summer research projects will be continued in the following academic year as independent study projects, culminating at Keck Annual Research Symposium in the spring. Students will publish short contributions in the annual proceedings volume and will be encouraged to present their work at regional and national disciplinary meetings. The projects involve a mix of field and laboratory research experiences that will make meaningful scientific contributions in the areas of structural geology, paleontology and paleoecology, and paleoclimatology as well as igneous and metamorphic petrology, sedimentology and stratigraphy, volcanology, geomorphology and geoarchaeology. The yearlong Keck Consortium program enhances students’ scientific and geoscience research skills and provides a robust scientific experience.